Integrating Chemistry and Earth Science

The Discovery Research K-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools (RMTs). Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects. This Integrating Chemistry and Earth science (ICE) project will design, develop, and test a new curriculum unit for high school chemistry courses that is organized around the question, "How does chemistry shape where I live?" The new unit will integrate relevant Earth science data, scientific practices, and key urban environmental research findings with the chemistry curriculum to gain insights into factors that support the approach to teaching and learning advocated by current science curriculum standards. The overarching goal of the project is to develop teacher capacity to teach and evaluate student abilities to use the practices of scientists and concepts from Earth science and chemistry to understand important phenomena in their immediate, familiar environments. The project has the potential to serve as a model for how to make cutting edge science directly accessible to all students. The project is a collaborative effort that engages scientists, science education researchers, curriculum developers, school curriculum and instruction leaders, and science teachers in the longer term challenge of infusing Earth science concepts and practices across the core high school science courses.

Current guidelines and standards for science education promote learning that engages students in three interrelated dimensions: disciplinary core ideas, scientific practices, and crosscutting ideas. This project is guided by the hypothesis that when provided sustained opportunities to engage in three-dimensional learning experiences, in an integrated Earth science and chemistry context, students will improve in their ability to demonstrate the coordination of disciplinary core ideas, scientific practices, and crosscutting concepts when solving problems and developing explanations related to scientific phenomena. This project will employ a design based research approach, and during the two development-enactment-analysis-and-redesign cycles, the project team will collect student assessment data, teacher interview data, observational data from lessons, teacher surveys, and reflective teacher logbooks. These collected data will provide information about how teachers implement the lessons, what students do during the lessons, and what students learn from them that will lead to better design and a better understanding of student learning. This information will be used to inform the modification of lessons from cycle to cycle, and to inform the professional development materials for teachers. The research agenda for the project is guided by the following questions: 1. What are the design features of ICE lessons that support teachers in enacting three-dimensional instruction within the context of their classroom? 2. What are the design features of embedded three-dimensional assessments that yield useful classroom data for teachers and researchers regarding their students' abilities to integrate core ideas, scientific practices, and crosscutting concepts? 3. What is the nature of student learning related to disciplinary core ideas, scientific practices, and crosscutting concepts that results from students' engagement in ICE lesson sets? 4. What differences emerge in student engagement and learning outcomes for ICE lessons that incorporate local phenomena or data sets as compared to lessons that do not? 5. What contextual factors (i.e., school context, administrative support, time constraints, etc.) influence teachers' implementation of three-dimensional instruction embedded within ICE lessons?